Two-Dimensional Quantum Materials Out of Equilibrium

This proposal mainly seeks to partially support 20+ undergraduate students, graduate students, post-docs, and under-represented, female, junior and retired faculty to attend and present at the symposium on Two-Dimensional Quantum Materials out of Equilibrium at the 2020 MRS Spring and Fall Virtual Meeting.